2011 Superconductivity Gordon Research Conference; Waterville Valley Resort; Waterville Valley, NH; June 5-10, 2011

NSF funds will be used to support (registration and travel) the attendance of junior and early career scientists at the 2011 Gordon Research Conference on Superconductivity. This biennial conference brings together world experts and young scientists to discuss open questions in the physics of superconductors and to disseminate the latest theoretical and experimental research results in these novel materials. It represents a training ground essential to maintaining U.S. leadership in this technologically important area. The 2011 conference will mark the 100th anniversary of Heike Kamerlingh Onnes' discovery of superconductivity and will focus on key unanswered questions in high-temperature superconductors including the cuprates and the iron-based superconductors as well as topological superconductors and heavy-electron superconductivity. The discovery of new materials and novel technological applications for electronic devices and for energy transmission and storage will be emphasized. Two special sessions will be reserved for breaking discoveries in both theory and experiment, so that the latest research results may be presented. The format of the conference will include both formal presentations by experts and informal "brainstorming" sessions where free-ranging discussions will be stimulated. The conference will provide an ideal environment for advanced graduate students and postdoctoral researchers to explore the latest theoretical and experimental methods to investigate challenging questions in the physics of materials having tremendous importance to both fundamental science and technological applications. Members of underrepresented groups have been recruited as conference speakers to provide role models and potential mentors for the young scientists who will participate.